Humans Transforming the Water Cycle: Community-Based Activities in Hydrologic Synthesis

Intellectual Merit. Hydrology is at an important crossroads. As articulated in several "Grand Challenge" documents, we've made enormous progress in process-level understanding at plot, hillslope, and small catchment scales, but our capacity to pass to the next horizon .to understand inherent variability in the water cycle, its predictability, human dimensions, and links to biogeochemical cycling over broader domains.requires a major reformulation of our thinking and a purposeful move toward synthesis and systematic observation. We focus here on an emerging view that humans are rapidly embedding themselves into the basic character of the water cycle, through a myriad of processes including direct water abstraction and flow diversion, land cover change, pollution, destruction of aquatic biodiversity, and climate change. The major scientific challenge is to understand how these changes manifest themselves and if they bear synergistic impacts across the different scales. Our primary scientific goal is to:

. Quantify the widespread alteration of hydrologic systems over regional-to-continental U.S. domains, identify natural and anthropogenic sources of such change, and assess their systemic impacts.

The science agenda will be advanced by:

. Convening a consolidated synthesis Working Group (WG), to study Regional Watersheds, Hydromorphology, and Continental Processes, for the purpose of carrying-out synthesis activities and serving as a test-bed for ideas on how to optimally execute synthesis.

Our WGs expand activities originally consolidated under the aegis of CUAHSI, and welcome new members who have led major community-based CUAHSI, NSF, National Academy, regional, national and international assessment activities. The focus of the WG will be on hydromorphology, an emerging science theme that addresses the evolution of hydrosystems as a complex amalgam of factors, today including natural processes as well as human management. Our attention will initially focus on the Northeast Corridor, a region with sharp gradients in climate, land and water manage-ment and emblematic of pressures on water resources across the nation. The WG will also maintain a continental U.S. perspective, testing our capacity to upscale regional dynamics and to simulate synergistic responses in the larger water system. In this context, we will bring together our geographically-oriented studies with the UIUC synthesis of predictability. The WG will produce models and data sets, organized through an IT framework to provide focus and unity of purpose. We will also designate a sub-team to interact with funded initiatives (EU-sponsored WATCH, NASA-NEWS, GWSP), to find the place of U.S. water systems on the global stage. In Year 4 we will produce a "lessons learned document and blueprint for a National Center for Hydrologic Synthesis. We also propose a Northeast Regional Student Consortium supported by a competitive scholarship program. The Consortium shares nationally prominent advisors from Boston U., Columbia, MIT, Penn State, Tufts, UMass, UNC, and UNH, and will be used as a model for synthesis education.

Broader Impacts. Beyond its scientific value, a synthetic understanding of hydrology is of enormous strategic importance both to the US and internationally. The globalization of water-related problems has gained a new sense of urgency in science and public policy circles. Given the central role of water in our environment and human well-being, it is not difficult to articulate the many benefits of a coordinated set of prototype synthesis activities focusing on water. The benefits of hydrologic synthesis go well beyond those of any new science alone and aim at several US strategic and strategic environmental issues: managing climate extremes, agricultural sector competitiveness, preserving ecosystem services and biodiversity, protecting human health and sustaining economic development. The proposed WG activities build toward our longer-term vision of creating a national platform -- a National Center--for a new interdisciplinary science of water that engages the water policy and management sectors, educates the next generation of students and makes hydrological knowledge more relevant to the public. Use of the WG as a springboard to study the process of synthesis among collaborators provides an important model for other disciplines undergoing a similar transformation toward synthesis.